The Psychology of Music

9900455
COURTMAN

The Science Place of Dallas, TX requests $47,715 for "The Psychology of Music." With this planning grant they will plan a 5,000 square-foot permanent and traveling exhibition focusing on the psychology of music. The exhibition will use the universal popularity of music as the background to develop an exhibition focusing on: (1) the psychological processes involved in perceiving and understanding music; and (2) how we can use the tools and processes of science in investigating music. The exhibition will present basic concepts concerning the physics and perception of sound. Since few interactive exhibits have been developed around the perception of music as sound, the planning grant will allow The Science Place to develop the conceptual structure for the project, develop an integrated exhibition and education plan, and prepare a business plan for marketing the new exhibition. The planning process will include front-end audience research, a review of academic research on the psychology of music, a planning session with advisors, and dissemination of findings to the museum community.